Arizona State University affiliation with the Center for Engineering Logistics and Distribution

A planning meeting will be held to determine if the Arizona State University is to become a research site to the existing multi-university Industry/University Cooperative Research Center for Engineering Logistics and Distribution (CELDi). The meeting will provide an opportunity to develop a recruiting plan for industrial partners, deploy the recruiting plan and prepare for the submission of a full center proposal.

The Arizona State University site will focus on two major areas of research: supporting the development and implementation of efficient and effective US-Mexico Logistics practices and enabling further productivity improvements as well as state-of-art supply chain and logistic practices in the Semiconductor Industry.